A Longitudinal Study of a Teacher Enhancement Project

The proposed program evaluation will be longitudinal study of the effects of an NSF-funded Teacher Enhancement Program entitled an "Industrial Partnership to Improve Mathematics and Science Education in Central Florida." This project continues in perpetuity as the Lockheed Martin/UCF Academy for Mathematics and Science because the Academy is now funded through an endownment from the Lockheed Martin Corporation. This in-depth, descriptive, mixed-method evaluation study will provide important information about the sustainability of teacher enhancement projects, provide information and guidance for ongoing data collection during other projects, and provide a model for approaches to evaluation of teacher enhancement projects.